Equipment for the Center for Limnology - Trout Lake Station

The Center for Limnology's Trout Lake Station provides access to Wisconsin's Northern Highlands Lake District, a region with one of the densest concentrations of lakes in the world. Aquatic systems within the Highlands include a broad range of trophic, hydrologic and edaphic conditions ranging from temporary forest ponds to large lakes. Many of these systems lie within protected, uninhabited watersheds. Research at the station has an extensive history and in the last two decades has grown and diversified dramatically. Current programs include several multi-investigator, ecosystem-level projects focused on long-term ecological research, lake acidification and cascading trophic interactions. Additional, smaller-scale projects concern population, community and behavioral ecology, groundwater hydrology and basic limnology. This project will provide equipment to improve the station's capacities in three core areas: capabilities for real-time sensing of the land and aquatic environments, basic analytical facilities for chemical and biological parameters, and controlled environmental systems for experimental analyses. Improvements in these areas will add significantly to the general utility of the Trout Lake Station as a center for aquatic research and will directly assist several major programs that are currently under way at the Station. Specifically, the funds will be used to purchase 1) a land- and water-based climatic station, 2) a research-quality spectrophotometer, and 3) a portable, shoreside aquarium-microcosm facility.